GOALI: Estimation and Control of Water in PEM Fuel Cells

Abstract
Power generation from Fuel Cell (FC) systems involve interplay of various attributes
from its chemical, fluid, mechanical, thermal, electrical, and electronic subsystems. This
study concentrates on the process that describes the reactant and water dynamics in a
proton exchange membrane (PEM) fuel cells. While computational fluid dynamic models
have been gainfully used to represent this process and aid in the design of fuel cell
systems, they are difficult to calibrate for large stacks and too complex for control design.
Any model-based control scheme used for water management must adequately trade-off
simplicity while still being able to predict the dynamic behavior of the vapor and liquid
phase transport, and consequently electrode flooding. The goal of this project is to extract
tractable models of the two-phase, reaction-diffusion, spatially distributed water
dynamics for parameterization and model-based control of fuel cells. Discretization and
model order reduction techniques will be employed to reveal the dominant processes and
parameters. Analytic methods for the identifiably and parameter convergence problem
will be supplemented with unique experimental methods. The results from this project
will be used jointly with NIST to develop guidelines for parameterization and estimation
of water in FCs. The models will be used in the last phase of the project for water
management, namely, predicting, detecting, and avoiding flooding or de-hydration.
Fuel cell systems promise to be an attractive alternative to traditional energy systems
such as gas turbines and internal combustion engines, as they are cleaner and more fuelefficient.
More importantly, they enable the goals of reduced dependence on foreign oil
and ease the transition to a hydrogen based economy. However, before the successful
commercialization of Fuel Cell technology in transportation and stationary power
applications, a critical need for increasing the life-time and robustness of these systems
has to be addressed. This project seeks to address this challenge by developing and
implementing advanced control methodologies for these fuel cell systems.